Measurements of Photoabsorption Cross Sections of Solar System and Cosmic Gases Under In-Situ Conditions

9317612 Wu Measurements of Photoabsorption Cross Sections of Solar System and Cosmic Gases Under In-Situ Conditions. Dr. Wu and his collaborators have successfully performed laboratory measurements of high resolution, low- and room-temperatuare photoabsorption cross sections of several molecules present in Solar System and cosmic gases. They will contine this research by applying it to the measurement of the cross sections of the 4PG system, Cameron bands, the underlying forbidden transitions and the pseudo-continuum of CO and to the cross sections of ammonia and several important hydrocarbons including Allene, Methyl Acetylene, Methyl Ethylene, Cyclopropane, Diacetylene, and Triacetylene, from their respective absorption thresholds to 1060 Angstroms. The pressure effects of perturbers such as molecular hydrogen and nitrogen on the aborbers of interest will be studied under conditions similar to those found in realistic planetary atmospheres.